Postdoctoral Fellowship: MSPRF: The Qualitative Thurston-Klein Geometry of Hitchin Representations

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Alexander Nolte is “The Qualitative Thurston-Klein Geometry of Hitchin Representations”. The host institution for the fellowship is the Institut des Hautes Études Scientifiques and the sponsoring scientist is Fannie Kassel.